Mathematical Sciences: Martingale Theory and Its Applications

This research will focus on martingales and related classes of stochastic processes and their applications, including applications to other parts of mathematics. Concrete problems will be studied whose solutions will be applicable in statistical and mathematical analysis. At the same time, general methods will be sought that may help to solve some of the concrete problems that will arise in the study of stochastic integrals, singular integral operators, and the geometry of Banach spaces. The goal of the proposed research is to solve specific problems in mathematical and statistical analysis, and to develop general methods that will aid in the solution of similar problems, not yet foreseen, that will arise in the future. The work supported by previous grants has led to new mathematical tools that have applications in industry, science, and technology. In all likelihood, the proposed research will yield more new tools as well as sharpen old ones.